CAREER: Transparent Support for Efficient, Wait-Free Transactions in Shared-Memory Multiprocessors

The use of multiprocessor computer systems is increasingly common in scientific and numeric computing. In developing applications for multiprocessor systems, new challenges arise in coordinating concurrent accesses to shared data. This is traditionally achieved through locking, which often restricts parallelism, and can also cause performance bottlenecks because delayed processes can cause others to wait. This work aims to eliminate locking from multiprocessor applications through the use of transparent, wait-free implementations of user-supplied transactions, which ensure that delayed processes never cause others to wait. In this project, wait-free implementations will be designed that automatically resolve conflicts between concurrent transactions, and exploit parallelism between nonconflicting transactions. Their performance will be studied through simulation and applications. Finally, a seamless interface for application code will be developed on several systems. The education plan of this project focuses on integrating research and education in concurrent programming. This research will provide new tools for developing efficient applications in multiprocessor systems. These tools will be used in some of the future courses in concurrent programming. ***